U.S.-Brazil Cooperative Research: Lacewings of Brazil's Atlantic Rainforest: Assessing their Diversity

9912449
Tauber

This US-Brazil award provides support for cooperative research between Dr. Maurice J. Tauber and Catherine A. Tauber of Cornell University and Dr. Gilberto S. Albuquerque of the Universidade Estadual do Norte Fluminense on the lacewings of Brazil's Atlantic Rainforest, in an assessment of their diversity.
This project will permit the assessment of the diversity of two insect families (Chrysopidae and Hemerobiidae) in and around Desengano State Park, a major remnant of Brazil's Atlantic Rainforest. With intensive fieldwork and laboratory rearing of these predacious insects, this research will develop an extensive regional collection of adult and larval specimens and gather comparative life-history data for taxonomic studies. The fieldwork will also generate representative specimens of other insect groups for use in the Brazilian university's reference collection of local insects.